Improvements in Instruction in Principles and Applications of FT NMR Spectrometry

The objectives of this projects are to strengthen undergraduate instruction in NMR with the use of a Fourier Transform NMR system. Laboratory experiments are conducted that illustrate multinuclear resonance, spin-spin coupling interactions between heteronuclei, relaxation phenomena, and variable temperature studies. The courses in which these experiments are conducted are the organic, instrumental analysis, physical measurements, advanced synthesis techniques, biochemistry, natural products and independent study courses. Computerized data acquisition and the Fourier Transform technique is also introduced. The institution is matching the NSF grant with an equal amount of funds.